Nonlinear Analysis 2000

This award is for the partial support of a conference in two areas of Nonlinear Analysis: Calculus of Variations and Bifurcation and Degree Theory. The conference will concentrate on the discussion of application of classical methods of the calculus of variations to new problems and on further development of relatively new methods such as Floer theory or Leray-Shauder degree for non-continuous maps. The conference will have a significant impact on the development of the field and will be beneficial to the mathematical community. I strongly recommend the award.